Perverse Sheaves in Representation Theory

The research program centers around topological questions in algebraic
geometry and representation theory. The focus is on the categorical
structure of sheaves on singular algebraic varieties. Particular emphasis
is placed on loop spaces and other varieties arising in the geometric
Langlands program. Several directions of study are considered.
The first project applies ideas from the geometric Langlands program to
the representation theory of real groups. It develops a geometric form of
harmonic analysis for moduli spaces of real bundles on a Riemann surface.
The main goal is to further open the representation theory of real groups
to the powerful tools of algebraic geometry. The second project seeks to
extend the representation theory of loop groups to noncompact groups.
Potential applications include the geometric quantization of spaces of
flat connections on Riemann surfaces, and the resulting construction of
new topological 2+1 dimensional quantum field theories. The third
project aims to develop an ``elementary" microlocal theory of perverse
sheaves. As a first step in this direction, it seeks an obstruction theory
for local systems on the complement of a singular divisor.

Representation theory is the mathematical study of symmetry. Some of the
most important phenomena involve places where there is a breakdown of
symmetry. For example, many surprising combinatorial formulas result from
writing a highly symmetric quantity in terms of contributions from
asymmetric pieces. In geometric representation theory, one of the primary
tools to measure the breakdown of symmetry is the theory of perverse
sheaves. These are complicated objects which detect dynamic aspects of
singularities, the locus where symmetry breaks down. The research program
described here aims to understand perverse sheaves and their role in
representation theory. It seeks to apply perverse sheaves to forms of
symmetry which arise in physics. In particular, it aims to develop a
geometric version of harmonic analysis and representation theory for
symmetries involving loops on a space. The project also seeks elementary
ways to think about perverse sheaves from a dynamic perspective.